Electronic Properties in Quantized Space Charge Layers

This study will answer some of the following questions: 1) In the materials where confining potentials result in a quasi-two dimensional electronic system, how do the carriers behave? 2) What parameters are a function of the dimensionality, what are specific to the materials? 3) How do carriers behave in the presense of incoherent scattering potentials? 4) What modifications are present due to coherent potentials? Different materials structures will also be studied.